Innovative GFRP Joints for Pultruded Frames

Innovative GRFP Joints for Pultruded Frames
Parsons/Hielmstad/White
University of Illinois at Urbana Champaign

The use of glass fiber reinforced plastic (GFRP) materials in structural applications is in its infancy These materials offer substantial benefits over traditional materials be-cause of their excellent durability characteristics and flexible manufacturability, How. ever, they remain uncompetitive with traditional materials for many application be-cause of the poor engineering performance of connections. The development of connections suited to the particular characteristics of this material is essential to the economic use of GRFP as a structural material. This research is aimed at such a devel-opment, and, consequently, could have a great impact on the evolution of this material in structural applications.

The objectives of this project are: ( 1) Design joints for use in moment resisting frames made from pultruded GFRP members. (2) Develop efficient manufacturing processes for these joints. (8) Test the joints under static loads in a frame and individually under cyclic, quasi-static loadings, (4) Produce simplified analytical models of the joints that can be used to design framed structures.